SGER: Systematics and Function: Exploratory Research on Locomotion in Ray-finned Fishes

Evolutionary studies often conclude that lineages of organisms have acquired "adaptations" -- novel morphological, behavioral, ecological, or reproductive features that confer some advantage to individual organisms. Very rarely do these studies confirm the actual advantage by direct measurement. One example is the evolution of the symmetrical ("homocercal") fish tail from asymmetric ("heterocercal") precursors. The conclusion has been that the homocercal tail conferred higher speed, greater maneuverability, and faster acceleration. Dr. George Lauder proposes to use newly developed micro-accelerometers, mounted on the tails of fish swimming in flow tanks, to gather performance data to test this conclusion. The accelerometer data gathering will be coordinated with Dr. Lauder's high-speed video imaging and electromyography (muscle activity) monitoring systems. The first performance data will emerge for homocercal and heterocercal fishes. The proposed research is inherently risky, being the first application of new sensors to a biological problem. Extensive software development will be necessary to couple the three data streams. If this Small Grant for Exploratory Research Project is successful, biologists will have acquired a powerful new technique for assessing functional capabilities, and a significant question in fish evolution will have been addressed.